Travel Grant to Attend the 1986 IFAC Workshop on Modelling, Decision and Games with Applications to Social Phenomena - August l986, Beijing, China

This project provides travel grants to participants in the August 1986 International Federation of Automatic Control Workshop in Beijing, China. The topic is Modelling, Decision and Games with Applications to Social Phenomena. This meeting has a strong interdisciplinary nature and will attract researchers from different parts of the world and different backgrounds.